PMSA: "Partnership for Minority Student Achievement"

PMSA-9453842 Jefferson County Public Schools Louisville, KY Podbelsek, Allen "Partnership for Minority Student Achievement" Jefferson County Public Schools, collaborating with a university, community agencies, and local businesses, will implement a five year Partnership for Minority Student Achievement program that will address the critical problem of preparing more minority students to enter college and pursue mathematics/science/engineering careers. The project will directly impact 2,900 of the district's 30,000+ minority students, their parents, and 390 teachers in 155 schools. The project will replicate the concepts and activities of the following successful models: AVID (Advancement Vis individual Determination), SECME (Science Engineering Communications and Mathematics Enrichment), Kentucky K-4 Mathematics Specialist program, SUM (Success understanding Mathematics), and TEAMS (Teaching Elementary Assessments in Math and Science). The project will use staff development, classroom instruction, and student activity components to 1) prepare teachers to develop new teaching strategies, 2) involve students in hands-on mathematics and science activities, 3) encourage parents to take part in their child's education, 4) improve study skills, 5) stress the importance of science and mathematics education, and 6) expose minority students to minority role models in the professional community.